Oceanographic Instrumentation

9815115
Carignan
This award to University of Georgia's Skidaway Institute of Oceanography will provide instrumentation for oceanographic research for use on R/V Blue Fin, a research vessel operated as part of the University-National Oceanographic Laboratory System research fleet, or on other research vessels as required. Specific instrumentation to be acquired is a winch to support studies of marine biology and related instrumentation for deploying instrumentation on conducting cables. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the Northwest Atlantic Ocean, in 1999 and future years.
***